PRF: Fine Root Dynamics in Floodplain Forests of the Alaskan Taiga

The objective of this research is to study fine root dynamics along a floodplain forest chronosequence sere on the Bonanza Creek LTER near Fairbanks, Alaska. The aboveground structure and function of these and other taiga forests are well documented, but little is known about below ground processes. Direct observations of roots, made with minirhizotrons, will be used to study the life history and longevity of fine roots and mycorrhizae. These data will be used to estimate the rate at which the fine root system is turning over and being replaced each year. Fine root/mycorrhizae production and motality rates determined via direct observation will be combined with biomass and nutrient content data derived from destructive harvest of the root systems to determine patterns of carbon allocation to fine roots and mycorrhizae during succession. The research is designed to capitalize on the strengths of direct and indirect methods of studying root systems to better understand the role of roots and mycorrhizae in ecosystem processes in the Alaskan taiga.